ITR: Statically Speculative Power-Aware\(SPA)\Architectures

This project focuses on compiler-enabled power-aware architectures.
Its purpose is to leverage static program information in smart ways,
to reduce power and energy consumption in both embeddded
and general-purpose architectures.
We follow three key general ideas to achieve this goal:
(1) we use static information to throttle processor resources,
(2) we incorporate architectural features to directly support static
compiler managed modes of operation, and
(3) we leverage speculative static information in addition to
the predictable static information to support (1) and (2).

We have demonstrated, in a number of processor architectural domains,
that our approach is feasible, and can be easily implemented, and that
considerable energy savings, beyond what would be possible with circuit
and architectural techniques alone, can be achieved.
We estimate that our techniques if combined, can give an additional
30% or more energy savings compared to state-of-the-art low-power
designs, while not significantly affecting performance.